Computer Upgrade for the Analysis of Weather Data

9224512 Orville This award would provide additional equipment to expand an existing computer system to analyze and provide interactive student access to weather data to five student workstations. This will include facilities for displaying current weather data products and making them available to workstations in a classroom environment. This award will also allow for an improved commitment to the UNIDATA program and the school will share and exchange ideas and programming expertise with others in this program. ***